Presidential Young Investigator Award

The connectionist paradigm provides the initial assumptions which form the basis of this work on characterizing mechanisms of the mind in terms of large networks of autonomous processing elements. Specific aspects of this work include models of human cognition, connectionist AI, and connectionist lerning algorithms in an interleaved fashion. This work focuses specifically on attention which will be studied in perception and also in higher levels of cognition.